Sensorimotor Cognition---The Earliest Knowledge Structures

This research investigates the origins of knowledge and conceptual structure. An interactionist perspective leads to a computational model in which the earliest knowledge structures are influenced by both native structure in the agent and its exposure to the world. `Physical schemas` are learned that form stable, dynamical relationships between the agent and the world based on closed-loop `physical primitives.` A preimaging technique is used to form context-dependent categories spontaneously in order to improve the quality of sensory and motor behavior. Declarative models are lifted from the sensorimotor substrate in the form of `figurative schema.` This representation includes explicit predictive models of sensation and affect, and thus captures some of the underlying semantics of behavioral policies. An integrated robot system is used as the experimental platform. The implications of this work extend to developmental psychology, epistemology, and psycholinguistics, artificial intelligence and machine learning. Computational agents built on these principles refer ultimately to the physical world for meaning --- the same physical world that shapes human conceptual structure. We foresee interfaces to electronic agents that appeal to semantics based in the physical world to understand the `meaning` of a human request.